SGER: Lots of Copies Keep Stuff Safe (LOCKSS) Government Documents

EIA-0245231
Michael Keller
Stanford University

Digital Government: SGER: LOCKSS Government Documents

This proposal will explore the usefulness and appropriateness of a distributed peer to peer network-based storage and archiving technology for the long-term (decades) maintenance of Federal records. Using a system known as LOCKSS, the PI will collaborate with the Government Printing Office and its group of 55 Federal Depository LIbraries. The hope is to provide new options to the current model of a central archieve with off-site backups.